Summer Undergraduate Assistantship Program

The Department of Computer Science at Washington University in Missouri will recruit 8 undergraduate students from around the country to provide them with an undergraduate research experience in computer science during the summer of 1990. Students will be matched with faculty based on their interests. Some of the active faculty research areas include image compression, DNA mapping, communications software, and networks. Women and minority students will be especially sought.